U.S.-Taiwan Research Development Visit with EASI: Linking TERN with the US LTER Network through Graduate Student Visits

0314584
Hamburg

The project is about a planning visit for developing collaborative research work in developing collaborative research work in pacific region long-term ecological research with researchers in Taiwan. The proposed study would contribute to strengthening the research collaboration between U.S. and Taiwan in the subject areas.